Computer-Equipped Introductory Physics Laboratory

The student laboratory for a three-semester, calculus-based, General Physics course will be improved with twelve computer-equipped laboratory work stations. Each work station will have a computer with a data acquisition interface card. Students will use the computers to acquire and analyze data not otherwise readily available to them. The University will match the award with an equal amount of funds.